Parallel and Vector Computing for Nonlinear Network Optimization

This proposal is to examine parallel computing for network optimization problem from three different directions: small scale parallelism and vector supercomputing, medium scale parallelism, and massively parallel computing. A primal truncated Newton algorithm will be specialized for the environment of vector and multiprocessor supercomputers. Novel algorithms based on speculative decomposition will be implemented on medium scale parallel computers. The suitability of massively parallel computers - - with thousands of processing elements - - will be investigated using distributed relaxation algorithms. A comparison across algorithms and machines and with currently used procedures will be used with real data. The final goal is to solve ultra-large problems having about 10,000 nodes and 1,000,000 arcs.